Investigation of Plasticity in Fiber Reinforced Metals using a Model Material

The phenomena of dislocation emission and movement in fiber- reinforced metals due to thermal expansion mismatch and deformation of the metal matrix by slip upon unidirectional straining is under study. Silver halides (AgCl and AgBr) are used as model materials for investigating deformation in metal- matrix composites. Silver halides can decorate dislocations at ambient temperatures, allow elastic stresses to be imaged by birefringence are transparent, and deform in a manner very similar to metals. Detailed information is obtained in three dimensions about the stress field and dislocation structure in these model systems.